Seventh Meeting of the Society for Research on Biological Rhythms, Amelia Island Conference Center near Jacksonville, FL, May 10-13, 2000

Dunlap
0084242

Biological rhythms are periodic or cyclic changes in acitivity that occur in virtually all living organisms. The time scales of such cycles may be shorter than seconds, or the well-known daily (circadian) rhythms of waking and sleeping, or long-term seasonal changes of reproduction. The organisms studied range from unicellular microbes to complex plants and animals, and the approaches range from the molecular to behavioral. The Society for Research on Biological Rhythms (SRBR) has a biennial meeting that brings together diverse researchers in the field, and also introduces scientists in related fields to the biologicaly rhythms community. In addition to regular slide and poster presentations, this meeting has tutorial sessions, review lectures, and a symposium on a particular topic, to promote cross-disciplinary interactions.
The NSF contribution supports attendance by graduate students, postdoctoral students and young faculty who otherwise do not have the resources to attend. This conference wil have an impact on these groups by introducing them to the current leading edge of the field and to potential future mentors, and will have an impact on biological sciences in general because of the fundamental importance of biological rhythms.